U.S.-Japan Joint Seminar: Generation and Application of Hot Dense Laser Plasma / Honolulu, Hawaii / May 1988

This award will support the participation of U.S. scientists in a seminar on the "Generation and Application of Hot Dense Laser Plasma," organised jointly by Professor George Miley of the University of Illinois and Professor Sadao Nakai of Osaka University, Japan. United States and Japanese participants will meet in Honolulu, Hawaii during May 1988. The seminar will focus on recent research developments in laser-produced plasmas. Topics for discussion will include: laser-plasma interactions; energy transport and radiation-atomic processes in laser produced plasmas; high brightness x-ray sources; and various technical applications of laser produced plasmas such as inertial confinement fusion and particle acceleration. The unique high-temperature, high density plasmas which are produced using powerful lasers represent a new regime of matter that is receiving intense research in both the U.S. and Japan. This seminar will be the fourth in a series that have been held on this general topic under the U.S.-Japan Cooperative Science Program, beginning in 1972. The 1988 seminar agenda emphasizes the potential new applications of laser plasmas in industrial processing. The seminar will provide a valuable forum for assessing the state-of-the-art in the field, for immersing relatively new investigators, and for charting directions for future collaborative research.